Theoretical Research in Condensed Matter Physics

The recent emphasis on strongly correlated fermion systems, stimulated in part by the discovery of high temperature superconductivity, has led to the development of new concepts and techniques which go beyond the conventional Landau theory of a Fermi liquid which for four decades has been the basis for the understanding of metals, semiconductors, insulators and superconductors. The strong interactions between electrons in the oxides, when compared to the relatively narrow band widths involved, lead to partial charge localization and local magnetic moment formation. These moments, coupled by exchange interactions, produce antiferromagnetic spin fluctuations which exhibit long range spin order at low temperature for certain ranges of electron concentration. This research addresses the nature and mechanism of the transition from Fermi liquid to strongly correlated behavior with emphasis on the spin correlation effects as seen by neutron scattering, magnetic resonance, photoemission and transport properties. Continuing previous work, the one electron spectrum and the dynamic spin susceptibility are being studied using diagram, functional integral and numerical methods based on one- and three-band Hubbard models. A new transport equation is being developed to include strong spin fluctuation effects. Contact with experiment and other theoretical approaches will be stressed. %%% The theoretical research will address the transition in interacting systems of electrons when they go from conditions in which they can be treated as independent particles to when they are strongly correlated. The conditions for this transition, and the theoretical techniques to deal with it, lie at the foundations of much of current condensed matter physics including the high temperature superconductors.